Design Techniques for Nonlinear Optimal Control Systems

This action is concerned with the transfer of the project on Design Techniques of Nonlinear Optimal Control Systems from Colorado State University to the University of Illinois-Urbana. A nonlinear operator interpolation and smoothing technique is adapted to steady-state system models and is applied to modeling problems in cardiovascular and pulmonary physiology, to periodic signal reconstruction with application to electrocardiograms, and to pharmacokinetics.